Gateways II

Garfunkel 9354099 Gateways II is a conference to be held in Boston, MA on October 1-3, 1993 to bring together the curriculum developers from all of the NSF-funded elementary, middle, and secondary school comprehensive mathematics curriculum projects. They share information, experiences and address common questions which have arisen as materials and curricula have been produced. In addition, questions of evaluation, teacher enhancement and implementation are addressed. The interaction of the developers of these projects is to provide better materials more expeditiously which can be implemented is schools. ***